Postdoctoral Research Fellowship in Biological Informatics for FY2001

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for FY2001. The fellowship supports research and training at the postdoctoral level at the intersection of biology and the informational, computational, mathematical, and statistical sciences. The goal of the fellowship is to provide training to a young scientist in preparation for a career in biological informatics in which research and education will be integrated. There is an increasing need for training in biological informatics at all occupational levels, and it is expected that Fellows trained through these fellowships will play important roles in training of the future workforce.

The research and training plan for this fellowship is entitled "Computer Simulations of Biological Molecules: Obtaining Unique Information on their Structure and Function from STM Images." Novel methods and tools for computer simulations of scanning tunneling microscopy (STM) images of biological molecules are being developed. These methods are being used for obtaining unique information about structure, dynamics, and function of proteins, lipids, and nucleic acids from their STM images. The methods will also facilitate tailoring STM experiments.